Enhancement of Teaching and Research in Social and Developmental Psychology

The aim of this project is to upgrade the existing Human Development Lab and enhance courses in developmental psychology. social psychology, and research methods. The proposed improvements will enable introductory and advanced level students to gain hands on experience using video and audio recording equipment combined with a variety of techniques for data collection and analysis to investigate a wider range of topics. This project will improve the quality of the education and training students taking our courses receive and will assist us in preparing greater numbers of our majors for graduate education and research in the behavioral sciences.